Construction of a High-Temperature Photolysis Flow-Reactor - Time of Flight Mass Spectrometer System

Equipment is acquired to support research on kinetics of elementary reactions, the mechanism of dioxin formation from combustion, and the use of solar energy to destroy hazardous wastes. The equipment consists of a high-temperature flow reactor that is equipped for optical pumping and is interfaced with a time-of-flight mass spectrometer, excimer laser that axially pumps the flow reactor to generate reactive radicals photochemically, and a time-of-flight mass spectrometer (TOFMS) for analysis of products.